Workshop on Knowledge Representation Standards

This workshop will identify AI knowledge representation technology which is ready for standardization. It will further initiate the development of standards for the areas deemed appropriate. For areas which presently are considered untargeted for standardization, attempts will be undertaken to define the remaining problems and issues that need solution to meet a minimum level of consistency that will allow standardization. The overall goal is to enhance the effective use of related software by the entire research and commerical community.